The Infinite Mind Public Radio Series

9901975
LICHTENSTEIN

Lichtenstein Creative Media is producing a national public radio series that examines recent advances at the frontiers of brain research and explores the scientific, behavioral, medical and social/ethical implications of those advances. "The Infinite Mind" is a weekly, one-hour program hosted by Dr. Frederick K. Goodwin, former director of the National Institute of Mental Health and head of the Alcohol, Drug Abuse and Mental Health Administration. He is an internationally recognized authority on the brain and behavior. While each program will focus on one specific topic (e.g., "How Children Learn"), the series covers a full spectrum of issues involving the human brain. The format for the programs includes documentary segments, interviews and discussions with research scientists, listener call-ins, guest essays and special reports.